Solar Wind Particle Entry into the Magnetosphere and Associated Global Dynamics Such as Substorms

The objective of the project is to investigate the fundamental physical mechanisms of substorms and associated particle entry by means of 3-D electromagnetic particle simulations with time-varying solar wind parameters. The 3-D EM particle simulations self-consistently include microscopic kinetic effects and can thus provide insight into important basic problems such as reconnection, tail current evolution and instabilities, and the spatial development of the substorm.